Upgrading of the Joint Computational Facilities at the Berkeley Seismological Laboratory and the Department of Earth and Planetary Science, University of California, Berkeley

0209752
Romanowicz

This grant supports an upgrade to the computational equipment in the Berkeley Seismological Laboratory and within the Department of Earth and Planetary Sciences at UC-Berkeley. Equipment to be purchased will include a multi-CPU SunFire server with expanded RAM, a multi-CPU Beowulf cluster of Intel PCs, a RAID system, tape backup system, multiple SunBlade workstations, a large format printer, and various network switches and Ethernet cards. UC-Berkeley will share equally in the cost of this upgrade.
Multiple investigators including Romanowicz (global tomography), Burgmann (geodesy/tectonics), Dreger (earthquake seismology), Manga and Richards (geodynamics), and their students, will immediately benefit from these upgrades.
***